Scholarships for Excellence in Computing and Mathematical Sciences

Scholarships are available to students majoring in computer science, computer engineering, and mathematics. These scholarships are increasing the number of students majoring in these disciplines while providing co-curricular support leading to improved retention rates and consequently, higher graduation rates. The support systems include peer mentoring, study groups, and cooperative learning.